Stochastic differential equations: potential theory and uniqueness

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The behavior of harmonic functions and potential functions for
processes that have jumps will be studied. In particular,
how does smoothness in the coefficients of the operators translate to
the smoothness of harmonic and potential functions?
Secondly, uniqueness for several probability models that have origins in
mathematical physics and mathematical biology will be investigated.
One model is that of stochastic partial differential equations in one
dimension with a space-time white noise as a driving term. A second model
is that of superprocesses with branching interactions.

In recent years researchers in mathematical physics, economics, and
mathematical finance have realized that to adequately model real-world
phenomena, the possibility of jumps must be allowed. For example, an
unexpected discovery or unexpected regional conflict might cause a sudden jump
up or down in stock prices. However, some of the very basic questions
about models that incorporate jumps are as yet unanswered. One of the areas
to be investigated is the regularity of such models. A typical question is:
if the initial data is perturbed slightly, is it true that the behavior of
the model at future times will also be only slightly perturbed?